Long Term Human Response To Sea Level Change

Dr. Mark Golitko (University of Notre Dame), with colleagues in Papua New Guinea (PNG), will conduct combined environmental and archaeological survey on the north coast of PNG to assess how people living there responded to rapid climatic and environmental changes during the mid-Holocene period (~7000-3000 years ago). Coastal dwellers are particularly vulnerable to environmental variability and natural disasters, for instance tropical storms and tsunamis. Anticipated increase in environmental variability and rising sea-levels during the coming centuries place many such communities at risk, increasing the likelihood of social unrest and potentially large scale migration out of poorer coastal areas. Predicted climatic changes are analogous to those that occurred during the mid-Holocene period, when marginally warmer global climate inundated many coastal areas. The north coast of New Guinea lies along a tectonically active zone with frequent earthquakes and resultant tsunamis, and is affected by the El Nino-Southern Oscillation (ENSO) cycle, which produces alternating years of drought and extreme rains. The ENSO cycle intensified during the mid-Holocene at the same time that developing coastal flats may have supported increasing populations. At present, people living in coastal areas of the Southwestern Pacific utilize a variety of risk management strategies, including growing resilient tree crops such as sago palm, and maintaining wide-ranging social ties that can be drawn upon in times of need. The proposed research will examine how people on the north coast of PNG coped with varying levels of ecological risk during the mid-Holocene period, including the antiquity of tree-cropping, extent of social networks, and relative human population levels.

The research team will use a combined strategy of soiling coring and archaeological survey and excavation. Soil coring will establish changes in environment including evidence of ancient tsunami events. Environmental indicators from core samples (pollen, charcoal) will be used to examine relative changes in population levels and the degree of human impact on forest composition, including the promotion of economic crops like sago palms. Archaeological survey and excavations in rock shelters and along the edges of ancient lagoons will examine the intensity of land use and provide evidence for transport of material culture, indicative of ancient social networks. The mid-Holocene was a period of increased mobility during which time new ideas and practices began to widely circulate in the Southwestern Pacific. Results will indicate how intensely people used the landscape in the context of rapid climatic shifts, how successful they were at mitigating ecological risk, how rapidly population grew, and to what extent these ecological changes may have promoted mobility in the broader Southwestern Pacific. The project will serve as a test case for anticipated outcomes of climatic and environmental change during the coming centuries in similar coastal areas. The project will also generate new ancient climate datasets of use for understanding the ENSO cycle and long-term patterns of climatic variability, as well as understanding the human role in tropical forest composition and conservation. Additionally, the project will provide training to New Guinean archaeologists and US undergraduate and graduate students.